Acquisition of Helicopter Services for the United States Antarctic Program (USAP)

OPP-0105229
Weber
This funding jacket will provide for the award of a contract to Petroleum Helicopters, Inc. (PHI) of Lafayette, Louisiana, as a result of NSF solicitation OPP-00007, Acquisition of Helicopter Services for the United States Antarctic Program (USAP). This is a two year contract with three one-year options. The Department of Interior, Office of Aircraft Services (DOI/OAS), under an agreement with NSF (MOA of September 1995), will provide administrative oversight of the contractor's performance and provide periodic disbursement of funds to PHI on NSF's behalf. Funds have been provided to DOI/OAS through award number OPP-0102171.

This award in the amount of $1.00 is to assign a contract number for the purpose of identifying and tracking the contract within the NSF awards system.

The Program Manager recommends this award for funding.